Collaborative Research: CAMEO 2009 - A novel tool for validating trophic position estimates in ecosystem-based fisheries models

Evidence increasingly demonstrates that selective removal of marine life can induce restructuring of marine food webs. Trophic structure is the central component of mass balance models, widely used tools to evaluate fisheries in an ecosystem context. Food web structure is commonly determined by stomach contents or by bulk tissue stable isotope analyses, both of which are limited in terms of resolution and versatility. The investigators will refine a tool, Amino Acid Compound-Specific Isotopic Analyses (AA-CSIA), which can be broadly applicable for quantifying the time-integrated trophic position (TP) of consumers. Differences in source and trophic nitrogen isotopic composition for specific amino acids will provide an unambiguous and integrated measure of fractional trophic TP across multiple phyla, regardless of an animal's physiological condition or of the biogeochemical cycling at the base of the food web. AA-CSIA will allow testing of the efficacy of trophic position estimates derived from ecosystem-based models and promote the evolution of these models into decision-support tools. This project has three goals: 1. To validate the application of AA-CSIA across multiple marine phyla under differing physiological conditions. 2. To compare the application of AA-CSIA across systems with contrasting biogeochemical cycling regimes. 3. To develop the use of AA-CSIA TP estimates for validating trophic models of exploited ecosystems. The investigators will test and refine the approach using a combination of laboratory feeding experiments and field studies across regions with differing biogeochemical cycling regimes. They will determine the applicability of the AA-CSIA approach in a variety of marine organisms assessed in controlled studies. Subsequently, ecosystem components will be sampled from the eastern tropical Pacific, coastal California and the subtropical Pacific gyre. They will also test the effects of sample preservation on the isotopic composition of individual AA to determine whether the approach can be used on archived samples. This tool will allow testing of the efficacy of ecosystem-based models currently used to gain insight into the ecological effects of fisheries removals and improve the reliability of future models required to manage marine resources. In addition to the goal of developing AA-CSIA for use as a TP indicator, the information obtained through this project will provide important species-specific biological data on the feeding behavior of marine organisms that could have implications for their resilience to anthropogenic pressures and climate change.

This project will have direct application to evaluating ecosystem effects of fisheries by providing an unbiased, integrated and independent approach to
estimating trophic structure, and a method by which to validate existing ecosystem-based model outputs and predictions. In addition, the project will have outreach benefits through the involvement of graduate and undergraduate students, and exposure of younger students through K-12 programs. This research will contribute to the greater understanding of the biology of locally important fish species as well as globally important shrimp and endangered marine turtles.